Adaptation of an X-Ray Area Detector for Use at a Synchrotron Source

An area diffractometer for crystallography has been installed at x-ray beamline X12-C at the National Synchrotron Light Source at Brookhaven National Laboratory. The diffractometer that was chosen was the FAST by ENraf/Nonius of Delft, The Nether-lands. Several projects are proposed to exploit the multi-wavelength phasing methods. Also, there is a tremendous pressure for use of the diffractometer among the existing community of crystallographers who have used film methods at the beamline. This pressure will drive the development of standardized but flexible methods for data collection and reduction. Funds are requested for an additional computer for use in this development project.